Acquisition of a 500 MHz NMR Spectrometer

With this award from the Major Research Instrumentation program (MRI), Krishna Kumar and colleagues David L. Kaplan, David H. Lee, Elena V. Rybak-Akimova and David R. Walt from Tufts University will acquire a two channel 500 MHz NMR spectrometer with pulsed field gradients for use by multiple investigators spanning three departments and two schools on the Medford campus of the University. The NMR spectrometer will enable research by a diverse group of researchers in the chemical and biological sciences ranging from characterization of organometallic/protein complexes and cellulose polymers, to the analysis of non-natural fluorinated peptides and post-translational modifications of proteins that direct supramolecular self-assembly.

Nuclear Magnetic Resonance (NMR) spectroscopy is one of the most powerful tools available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, to characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometers is essential to chemists who are carrying out frontier research. The results from these NMR studies will have an impact in synthetic organic/inorganic chemistry and biochemistry.